Physically-Inspired Modeling for Haptic Rendering

Physically-Inspired Modeling for Haptic Rendering

Ming C. Lin
Department of Computer Science
University of North Carolina at Chapel Hill

The sense of touch is one of the most important sensory channels
and is used for object identification, data manipulation and
concept exploration. Therefore, force feedback via haptic
(touch-enabled) devices offers many possibilities for enhanced
human-computer interaction. Extending the frontier of visual
computing, this project proposes to develop physically-inspired
modeling and simulation techniques for high-fidelity haptic
display that will augment visual display.

The proposed research will be driven by two target
applications in science and education: nanomanipulation
and haptic painting. Both applications will also be used
to enhance science and art education at middle and high schools.

INTELLECTUAL MERIT: This research is expected to lay the
scientific foundation for an emerging paradigm of
physically-based haptic interaction with virtual environments.
It includes new algorithmic insights, efficient computational
methodology, and system integration for two challenging
applications. The underlying representations, algorithms
and software systems for fast contact computation, interactive
modeling of flexible objects, multi-level optimization,
use of programmable graphics hardware, simulation acceleration
techniques, and VR device augmentation will also offer fundamental
advances for virtual environments, physically-based modeling, and
scientific visualization.

BROADER IMPACT: By extending the frontier of high-fidelity haptic
rendering, the proposed research can develop a significant
augmentation to existing graphical display and scientific
visualization. Furthermore, each proposed application has
the potential of making a considerable impact on its own.